US-Turkey Workshop on Seismic Retrofit and Post-Earthquake Evaluation of Highway Bridges

Contacts between the earthquake engineering communities in the United States and Turkey
have intensified since the 1999 Kocaeli and Duzce earthquakes that led to damage and
failure of numerous structures in Turkey. Many bridges were affect by these earthquakes.
The US engineers and researchers have been working with their Turkish counterparts to
maximize the lessons learned from these earthquakes because these lessons would benefit
both countries. A joint US-Turkey workshop is proposed with the following objectives: (1)
To provide a forum to enhance communication between engineers and scientists involved in
earthquake engineering of bridges in the United States and Turkey, (2) To exchange
information about recent lessons learned in each country in seismic retrofit of bridges
and health monitoring techniques to aid in post-earthquake investigations, (3) To develop
areas of common needs and interest in bridge seismic retrofit and health monitoring, (4)
To develop a list of priorities for future joint US-Turkey research in seismic retrofit
and post-disaster evaluation methods for bridges, and (5) To identify sources of funding
for joint research in both countries. Relative to previous US-Turkey workshops, the
proposed program will have the new dimension of post-disaster evaluation of bridges.
Approximately 18 to 20 US delegates will be selected for participation, some with full and
others with partial support from this project. The delegates will be from federal and
state transportation agencies, NSF, the private sector, and the academia. A steering
committee will be formed to help select the members and develop the workshop program. The
workshop is tentatively scheduled for August 2004 in Ankara.

The proposed workshop will provide an opportunity for close exchange of ideas and lessons
that have been learned in the US and Turkey in seismic retrofit and post-earthquake
evaluation of bridges. Both countries will benefit from the workshop as information is
discussed in detail in the course of the four-day workshop. Seismic retrofit and
post-disaster evaluation of bridges are still emerging. Both areas encompass a great deal
of technical and non-technical issues. Learning the perspectives of engineers and
researchers from other earthquake-prone countries that face problems similar to those of
the US will enrich the knowledge of the scientific and design community in the US.
Furthermore, the new potential collaborative research could involve undergraduate and
graduate students in the US. These students will be trained in earthquake engineering
research and design and will be exposed to international views and perspectives. The
training of skilled individual with understanding of international issues will enhance the
manpower in the US scientific work force and will improve the labor pool for more advanced
design and research work in the global market.